US-Europe Cooperative Workshop: Compatability and Integration of Software Engineering Tools

Manna
0437281

This one-year award supports the participation of 15 US researchers, including two postdoctoral fellows in a US-European cooperative workshop, "Software Engineering Tools: Compatibility and Integration." The workshop is organized by Zohar Manna of Stanford University, Thomas Henzinger of the Ecole Polytechinque Federale of Lausanne, Switzerland, and Hermann Kopetz of the Technical University of Vienna, Austria. A lack of tool integration has been recognized as a major impediment to the construction of complex computer systems, especially in the development of embedded systems. Tool operability is an important prerequisite for increasing software productivity and reliability. The workshop will address these issues.

The workshop will bring together American and European scientists that share a common interest in seeing that software development research serves as a catalyst for practical advances in next-generation software intensive systems. It is expected to give rise to new collaborations that advance the field. To advance this purpose, the workshop will include a meeting of the working group of the China, US, and Europe initiative (CUE), a global initiative to integrate theoretical computer science with software engineering practice.